NASA-CCITT Project in Remote Sensing, Image Processing, and Geographic Information Systems

Patricia A. Cunniff DUE 9553662 Prince George's Com. College FY1995 $ 313,973 Largo, MD 20772 FY1996 $ 293,427 FY1997 $ 87,541 Advanced Technological Education Title: Remote Sensing, Image Processing, and Geographic Information Systems Community Colleges for Innovative Technology Transfer, Inc. (CCITT), a consortium of 12 community colleges across the United States, all linked with a local NASA Center, is conducting six faculty development workshops (two each) in remote sensing, image processing, and geographic information systems. An earth systems science course with a self-standing laboratory utilizing remote sensing, image processing, and geographic information systems is being developed as well as an interdisciplinary curriculum module having multiple strands which utilize the technologies above. The interdisciplinary modules can be infused into science and technology courses at CCITT institutions and other community colleges throughout the United States. Community college members of CCITT include: Brevard Community College, FL, Cuyahoga Community College, OH, Foothill-DeAnza Community College District, CA, John C. Calhoun Community College, AL, Pasadena City College, CA, Pearl River Community College, MS, Prince George's Community College, MD, Thomas Nelson Community College, VA, and Houston, TX-based Consortium for Aeronautical Technical Education composed of San Jacinto Community College, College of the Mainland, Alvin College, and Lee College. NASA Headquarters and local NASA Centers are supporting the faculty development/curriculum work. The remote sensing workshop is being held at NASA Goddard Space Flight Center in Greenbelt, Maryland with a portion of the instruction being provided by NASA scientists and engineers. Scie ntists from AMES are involved with the two image processing workshops to be held at Foothill College. Individuals from academe and industry with GIS experience support the two GIS workshops.